Federal Cyber Service: SFS

This scholarship for service proposal supports three 2-year cohorts of 14 students each, with an estimated distribution of eight undergraduate and graduate students at Georgia Tech, and six undergraduates at the three
HBCU institutions, Clark-Atlanta University, Morehouse College, and Spelman College, which are partners in this proposal. The project is directed by the Georgia Tech Information Security Center (GTISC), an NSA designated Center of Excellence for Information Assurance Education (CAE/IAE). The GTISC educational program includes a comprehensive curriculum that serves a broad range of students and covers both technology and policy. Six carefully considered courses dedicated to IA/IS have been developed and offered in the past year, and these help provide a basis for IA/IS concentrations at all degree levels. The faculty at Georgia Tech are working with the faculty at the three partner institutions to introduce IA/IS courses and topics into their curricula, to take their students into our advanced classes, and to support prospective IA/IS scholars at these schools.

IA/IS educational programs at Georgia Tech and current and planned efforts at the HBCU institutions offer us the opportunity to recruit, train and graduate a diverse and well prepared group of professionals who will be able to help protect the computational and communication infrastructure of the country.